Chapman Conference on GPS Measurements for Geodynamics

This grant supports a conference on "GPS Measurements in Geodynamics". The purpose is to plan the future of the GPS program of field measurements, which are rapidly becoming the primary tool for studying crustal deformation over regions of tens to hundreds of kilometers. During the past two years, the NSF has sponsored the acquisition of GPS receivers by the University Navstar Consortium (UNAVCO) and the use of these receivers by different groups of investigators for experiments along the Pacific-North American plate boundary in California, between several of the Hawaiian Islands, and in Yellowstone Plateau - Hebgen Lake region of Wyoming and Montana.